Formal Models for Parallel Discrete-Event Simulation

There are many large simulations in science and engineering which are very time-consuming when performed on sequential machines. Parallel simulation is the most promising approach for speeding up these simulations. Two major strategies have emerged as viable candidates for parallel discrete-event simulations: the conservative strategy, pioneered by Chandy and Misra, and the optimistic strategy, pioneered by Jefferson. In the past several years, there has been a great deal of research in comparing the two strategies, using both empirical and formal methods. But several interesting issues remain. This project addresses some of these issues in formal models for parallel and distributed discrete-event simulation algorithms. Of specific interest is to include some of the costs which are ignored or vastly simplified in many existing formal models, such as rollback, message-passing, state-saving, and deadlock detection and recovery costs. In general, including these overhead costs in analytical models causes the resulting analysis to be intractable. By restricting the application domain, these costs can be included in formal models, resulting in models which more accurately reflect actual behavior. In particular, it is planned to compare different simulation strategies, so inclusion of the overhead costs could affect the resulting analysis.